Basal Lineages of the Phoridae (Insecta: Diptera)

The Phoridae is an extremely large group of small, poorly-known flies,
some of which are pests of agriculture, and others of which have
potential for biological control of pest insects. There are about 3,500
described species in this family, but actual totals for the world fauna
are closer to 35,000, meaning that only about 10% of them have been
described by scientists. These flies are among the most biologically
diverse insects, with some being scavengers, herbivores, predators, and
parasites. Some have become associated with ants and termites, and have
bizarrely modified females that lack wings and have a beetle-like
protective structure. There has been sharp disagreement about the
classification of the most primitive groups of phorid flies, which has
hampered the understanding of their relationships and diversity. The
primitive phorids will be studied on a worldwide basis using body
structure as well as DNA sequences by a team of a museum-based
morphologist and a university-based molecular expert. Molecular
characters will include about 4000 base pairs of both mitochondrial and
nuclear genes. Field expeditions will be carried out in Europe, North
America, South America, New Zealand, and southeast Asia to collect fresh
specimens for analysis; additional specimens from Africa will be
provided by collaborators. Additionally, we will revise the New World
species of the largest genus of primitive phorids, Dohrniphora. This
genus is currently known from 85 described species, but we will describe
the approximately 100 further new species that exist, adding
considerably to our knowledge of tropical insect biodiversity.

Phorid flies are a highly significant part of the world's biodiversity
that has been barely addressed by scientists. Study of the morphology
and genes of primitive phorids will allow us to understand how traits
like parasitism or herbivory have arisen within this group, and perhaps
in other insects as well. It will provide a robust framework for the
classification of these flies that will foster better communication
about their relationships. A firm understanding of the species of
Dohrniphora will allow these small, easily collected insects to be used
in conservation assessment in tropical rain forests, and will allow us
to learn more about diversification of tropical insect faunas. Projects
will include undergraduate students, who will gain valuable expertise in
both field and laboratory work.